NeTS: Small: Distributed Solutions to Smart Camera Networks

Smart camera networks (SCNs) merge computer vision, distributed
processing, and sensor network disciplines to solve problems in
multi-camera applications by providing valuable information through
distributed sensing and collaborative in-network processing.
Collaboration in sensor networks is necessary not only to compensate
for the processing, sensing, energy, and bandwidth limitations of each
sensor node but also to improve the accuracy and robustness of the
network. Collaborative processing in SCNs is more challenging than in
conventional scalar sensor networks (SSNs) because of three unique
features of cameras, including the extremely higher data rate, the
directional sensing characteristics with limited field of view (FOV),
and the existence of visual occlusion. An integrated research is
carried out to tackle the unique challenges presented by SCNs where
collaboration is the key. Three aspects of collaborative processing
are investigated, 1) coverage estimation in the presence of visual
occlusions to provide adequate redundancy in sensing coverage, and to
enable collaboration where the statistics of visual coverage blends
the statistics of camera nodes and targets, 2) clustering to
schedule an efficient sleep-wakeup pattern among neighbor nodes formed
by image comparison-based semantic neighbor selection algorithm for
more efficient collaboration, and 3) distributed optimization, for
in-network data processing that concerns how to effectively obtain
robust and accurate integration results from multiple distributed
sensors for challenging vision tasks like target detection,
localization, and tracking in crowds.